Nucleation and Growth in Aluminum-Zinc and Order-Disorder inSilver-Gold-Cadmium

The technique of small angle scattering is used to analyze the kinetics of homogeneous nucleation and growth in the aluminum- zinc binary alloy system. Supersaturation is measured as a function of time for four different average concentrations and the results compared to the Langer and Schwartz kinetic theory for nucleation and growth. The technique of neutron resonant scattering is applied to a study of order-disorder reactions in the silver-gold-cadmium alloy system. This novel approach measures for the first time partial ordering in a ternary alloy.